BioHydrogen '97: International Conference on Biological Hydrogen Production

9707931 Zaborsky The objective of this conference is to bring together academic, government, and industrial researchers, both international and national, in the biological production of hydrogen. Participants are to exchange scientific and technical information in order to describe the current state- of-the-art of the field, and to stimulate cooperative programs. ***